A Redshift Survey from Las Campanas

The determination of large scale structure in the universe is a major problem in astrophysics today. During the last two years, the Principal Investigator has begun to produce results from a redshift survey which aims to map the universe beyond 1 billion light years distance. The project consists of measuring 25,000 selected galaxies, and positions and magnitudes of 20,000 galaxies have been obtained. Approximately 10,000 spectra have been obtained, and they have measured distances to 5,000 galaxies. This project will be continued through this grant. The Principal Investigator is regarded as a world leader in this research area.